U.S.-Australia Workshop on Microbial and Plant Opportunitiesto Improve Lignocellulose Utilization by Ruminants. RussellResearch Center, Athens, GA, April 16-30, 1990

This award will support a U.S.-Australian workshop "Microbial and Plant Opportunities to Improve Lignocellulose Utilization by Ruminants" to be held at the Richard B. Russell Agricultural Research Center, Athens, Georgia, April 16-20, 1990. The organizers are Dr. Lars G. Ljungdahl, Professor and Director, Center for Biological Resource Recovery, University of Georgia and Dr. J.R. Wilson, CSIRO (Commonwealth Scientific and Industrial Research Organization), Division of Tropical Crops and Pastures, Brisbane, Australia. The workshop will bring together U.S. and Australian experts with relevant theoretical and experimental backgrounds in plant cell wall chemistry and biological structure to discuss the biochemical and microbial limitations to lignocellulose utilization in ruminants. The workshop will propose specific ways to overcome the limitations to utilization of plant cell walls, and specific approaches to effect changes through genetic engineering of rumen microorganisms. Collaborative interaction between Australian and American scientists is expected to be strengthened by workshop definition of researchable problems on which to base and evaluate future cooperative research in this area.